SHF: Small: Detecting and Repairing Presentation Failures in Web Applications

The user interfaces (UIs) of a web application serve an important role
in the success of online companies. Studies have shown that the
aesthetics of an application’s UIs can strongly influence users’
overall evaluation of a company; in particular impressions of
trustworthiness and usability. Presentation failures — a discrepancy
between the actual appearance of a web site and its intended
appearance — can undermine this effort and negatively impact end
users’ perception of the quality of the site, the services it
delivers, and affect the branding a company is trying to achieve.
Debugging presentation failures is typically a manual task where
testers must identify when the layout and style of an app’s pages is
incorrect and developers must carry out repairs. This process is both
labor intensive and error prone: testers can easily miss presentation
failures, since the process is based on the testers’ visual comparison
of a page and an oracle; and it can be difficult for developers to
identify the responsible HTML elements or properties once a failure is
detected, since HTML and CSS interact in complex ways. In this
research effort the PIs will investigate automated techniques to help
testers more accurately detect presentation failures and efficiently
identify the faulty code. Given the widespread deployment of web
applications, this work will impact both end users and software
developers by reducing errors in these applications and making the
debugging process more effective and efficient. The results of this
research will also impact educational efforts through the training of
future software engineering in new techniques to improve the quality
of web applications.

The technical research will encompass two general areas. The first
area of research will advance techniques for detecting presentation
failures. The primary mechanism for doing this will be to apply
computer vision techniques to automatically identify discrepancies
between the actual rendered appearance of a UI and its intended
appearance. The developed techniques will be widely applicable to a
range of UIs, including those with dynamic content and those using
different specification mechanisms for UI oracles. The second area of
research will use the identified differences to identify the specific
elements in the UI code that are responsible for the observed
failures. The research efforts will focus on using artificial
intelligence techniques, such as search-based and statistical-based
learning, on the UI’s layout models to reason about the UI’s possible
faults and guide the developers to identify the faulty HTML elements
and CSS properties.